3-Manifolds and Applications to Geometry

Proposal: DMS-0083097
PI: Walter D. Neumann

Despite the venerable history of the algebraic geometry, many difficult
problems remain even in low dimensions. Methods of low dimensional
topology have proved very helpful here, and part of this project concerns
a continuation of the investigator's successful application of such
methods to the study of singularities of complex surfaces and the topology
of plane affine curves. One issue to be addressed is explicit analytic
description of singularities with given topology. The general question is
notoriously difficult, but the investigator and J. Wahl have recently made
a series of conjectures on realising rationally Gorenstein singularities
with rational homology sphere links as explicit quotients of complete
intersections and are making significant progress towards their
resolution. 3-manifold topology is also being applied to the study of the
global topology and analytic classification issues for two-variable
polynomials. These issues are of intrinsic interest as well as having
potential to contribute to the resolution of the famous Jacobian
Conjecture. In a rather different direction, the investigator will study
invariants of 3-dimensional manifolds that relate to number theory and
algebra, namely the so-called character and eigenvalue varieties and the
Bloch invariant. Connections are emerging between these invariants that
will inform both topology and algebra/number theory.

Algebraic Geometry, which is essentially the study of the zero sets of
families of polynomials, has always been an important area of
fundamental research, and is also important in such diverse
applications as control theory and communications. The project will
apply topological methods to algebraic geometry, to obtain results on
how to realise and classify families of polynomials that lead to
particular topologies. The methods of 3-dimensional topology are of
particular importance to this project, and there is also feedback from
algebra and number-theory to topology, as well as some interaction
with theoretical physics and cosmology. The project also studies
new insights that these connections bring to all these fields.